Essential Concepts for Building Interactive Computer Graphics Applications

Computer Science (31)

This project is refining course materials from a new top-down approach to teaching computer graphics and is developing ways to assist others in adopting this new approach. The approach is based on analyzing and implementing graphics applications with real-world complexity. It is motivated by students' interest in computer graphics because of their experience with graphics-based applications and their desire that their courses will be directly applicable.

The intellectual merit of this project lies in facilitating a better understanding of fundamental computer graphics concepts in real-world applications, resulting in improvements of student motivation/retention with efficient learning.

The broader impact of this project lies in creating a model for computer graphics courses in most existing IT/CS/Engineering degree programs that supports working adults in both self-learning the concepts and in practicing implementation of computer graphics applications.